Creation of a Pilot Video on Solar Prominence Research

9311415 Martin This project is to produce a video that fulfills three needs: communication, education, and the stimulation of research on the subject of solar prominences. The central idea is to create a unique research review paper by utilizing the descriptive and pictorial advantages of video format. The intended audiences are scientists in astronomical and space sciences and their graduate or undergraduate students. One of the goals is to communicate recent research discoveries about solar prominences to a wider audience than is usually reached by publishing results only in journals. The broader anticipated audience of scientists would comprise plasma physicists, stellar astronomers, interplanetary and solar investigators. A second goal is to provide sufficient introductory and background material to capture the interest of these viewers. A third goal is to present the subject from a provocative, questioning perspective which will stimulate work on key unsolved problems about solar prominences. The creation of this video is proposed as a pilot video because of the potential desirability of subsequently modifying and amplifying the video to appeal to a wider audience of viewers at in college or highschool science courses or at planetariums. It is also an experiment in using imagery to review scientific material in a format that is both condensed and easy to mentally assimilate. ***